Mathematical Sciences: 1988 Gordon Conference: Statistics onChemistry and Chemical Engineering; August 1-5, 1988; New Hampton, New Hampshire

This project partially supports the domestic travel of participants attending the 1988 Gordon Research Conference on Statistics in Chemistry and Chemical Engineering. The Gordon Research Conference fund will provide the principal costs of the research meeting. The conference provides an opportunity for the exchange of new ideas among researchers in statistics, chemistry, and chemical engineering. Participants will include statisticians, chemists, and chemical engineers from industry, government, and universities. The discussions will involve innovative research ideas in applied statistics and in the analysis of chemical phenomena.